Secondary Training and Reform Effort Using Reform Materials (STREAM)

9555794 Merseth The implementation of secondary school instructional materials is being enhanced by the production of informational and staff development materials. These new materials include case studies and video segments related to each of the NSF supported, comprehensive secondary instructional materials development projects and are being produced in print, video and interactive formats. These materials illuminate the salient content and pedagogical features of the secondary instructional materials and are designed for use by those involved in evaluation and selection of instructional materials for high schools as well as for staff developers.